Practical Fabrication Techniques for Durable "Moth Eye" Optical Absorbers

A geometric transition structures, "Moth Eye" for use as optical absorbing surfaces will be developed and tested. These surfaces are used inside optical instruments to reduce scattered light. A more effective surface will be obtained by giving emphasis to finishes that can be practically manufactured and which utilize fabrication techniques that give rugged and durable surfaces. These finishes will applied to curved interior surfaces using a sputter-etching cathode method utilizing three different classes of material: a low index dielectric, a semiconductor, and a pure metal.